NSF Backbone Transition Workshop; April 28-29, 1994; Washington, D.C.

9413333 Stone-Martin Support for an NSF Backbone Transition Planning Workshop FARNET (The Federation of American Research Networks) has requested partial support for a planning workshop aimed at developing goals for the transition and a model of the critical planning steps needed. It will also serve as a forum for team building. The workshop will bring together networking stakeholders from all sectors to discuss issues related to the transition and the next phase of the NSF backbone evolution. This planning process is very timely with regard to the overall interest in both the Administration and Congress for the overall vision of the Networking Information Infrastructure and the part that the current Internet will play in it. Funds will be used to partially defray travel costs of the academic attendees and to pay for post forum editing and costs for disseminating the resulting report.